Paradigms for Parallel Algorithm Design

This project aims to develop a theoretical foundation for a rigorous research program on robust and efficient paradigms for parallel algorithm design. The project addresses a broad spectrum of paradigms: - general paradigms, including innovative methods for exploiting treestructured computations, for designing parallel data structures, and for parallelizing recursive specifications - high-level design techniques for systolic architectures, including general methods for designing schemes that are topology independent - parallel design schemes for computational geometry, including novel methods for utilizing an output-sensitive number of processors and for traversing geometric structures in parallel - techniques for artificial intelligence, including efficient parallel solutions of symbolic constraint satisfaction networks and parallel inference in semantic networks - studies in robustness of parallel computations, including highly efficient testing/modifying schemes and fast parallel acceptance testing In addition, the PIs intend to verify experimentally overhead inherent in algorithms, by implementing them in a high-level parallel programming language.